SENSORS: Detecting Microbial Pathogens with Novel Surface Acoustic Wave Devices in Liquid Environments

This SENSORS proposal integrates research and education to exploit the sensitivity of a new
family of LGX crystal devices operated in novel Shear Horizontal Surface Acoustic Wave (SH-SAW)
propagation directions by combining them with highly selective molecular padlock probes to detect
specific nucleic acid sequences associated with bacteria such as Escherichia coli O157:H7, Salmonella
typhi, and Vibrio cholerae in aqueous solutions. The anticipated fundamental advances in sensor science
and engineering will be relevant to numerous applications, including rapid response to bioterrorism,
healthcare, epidemiology, agriculture, food safety, and pollution avoidance and mitigation.
This SENSORS program builds upon the initial proof-of-concept results provided by an NSF
SGER project funded by the divisions of Electrical and Communication Systems, and Bioengineering and
Environmental Systems. The intellectual merit of this proposal rests in the creative, integrated research
and education activities related to combining the recently identified LGX SH-SAW devices with
molecular padlock probe technology to permit the design, fabrication, testing, and optimization of
prototype biosensors. The specific research objectives of this SENSORS program are to: (i) Identify the
surface density chemistry for increased sensitivity; (ii) Investigate and identify the optimal LGX SH-SAW
orientation and device design for operation with the padlock technology; (iii) Study and develop the
molecular padlock probe system to operate effectively in conjunction with the LGX SH-SAW device; (iv)
Fabricate and test the prototype SH-SAW liquid biosensors; (v) Identify and optimize a procedure for
sensor regeneration; and (vi) Characterize and optimize the sensor's dynamic range and cross-effects due
to temperature and other physical and chemical factors.
The educational objective of this SENSORS program is to provide a multidisciplinary learning
experience to students ranging from high school to graduate student level in the area of sensors in general,
and biosensors in particular. Broader impacts will be achieved through the following programs and
activities to: (i) Train and interact with high school audiences through two major ongoing programs at
University of Maine (UMaine), NSF Research Experiences for Teachers (RET) and the GK-12 Sensors;
(ii) Involve undergraduates from Maine and other institutions directly into the research project under the
umbrella of the ongoing NSF Research Experience for Undergraduates (REU) program at the UMaine;
(iii) Expand existing undergraduate Sensor Technology and Instrumentation and Biochemical Engineering
Engineering courses at the UMaine by adding modules relating to biosensors devices and systems; (iv)
Identify appropriate Capstone projects for undergraduates involving cross-disciplinary research and design
projects; (v) Enhance existing graduate level courses Microscale Bioengineering and Design and
Fabrication of Acoustic Wave Devices by incorporating research results into the course; (vi) Contribute to
the new interdisciplinary multi-institutional NSF Integrative Graduate Education and Research
Traineeship (IGERT) program in functional genomics, which involves UMaine, the Jackson Laboratory,
and the Maine Medical Center Research Institute; (vi) Provide a experimental and/or theoretical thesis
topics for Masters and Ph.D. students; (vii) Disseminate the research and educational material on a project
website, and through conferences and printed literature.
The SENSORS project proposed here is designed to result in tangible research and educational
benefits. It will provide a knowledge base critical to creation of the next generation of biosensors for
single unit production and future integration into arrays. It also seeks to establish a model program
whereby cross-disciplinary education is integrated with a state-of-the-art research program, providing a
rich learning experience for students ranging from high school to graduate student level. Finally, the
project will help to strengthen US research and educational capabilities in an area of high technology that
currently is in need of highly trained industry and academic professionals.